Doctoral Consortium at the 2020 International Symposium on Experimental Robotics (ISER 2020)

This travel award project will provide travel funds for 15-20 US-based students to attend the 2020 International Symposium on Experimental Robotics (ISER) in Malta, Nov 9-12, 2020, and participate in the doctoral consortium. The symposium features both invited and selected research presentations that focus on robotics research that has been validated through experimental results. This unique conference presents the latest advances across various fields of robotics, with ideas that are not only conceived conceptually but also explored experimentally. It has a high visibility in the international robotics research community as well as a high relevance to applications due to its emphasis on experimental validation. ISER 2020 will provide excellent opportunities for students to learn about the latest advances across a wide spectrum of robotics research, development, and applications and to network with seasoned researchers and practitioners in the worldwide robotics community. In the case where the current schedule becomes not practical, the Doctoral Consortium Workshop will be held during the March 2021 period.